Science-Mathematics Newsletter for Elementary-School Teachers

Science Weekly, Inc., the publisher of a K-6 science magazine, will develop and publish a teacher focused newsletter to improve elementary teachers' skills in teaching science and mathematics in geographical areas where there are high concentrations of low income and minority students. The newsletter will be designed for the purpose of increasing teachers' knowledge of content, to inform and instruct them in strategies and techniques necessary to assure quality classroom science and mathematics instruction, and to provide up-to-date bibliographies and developments in classroom teaching and learning. The newsletter will highlight high-interest topics in science and mathematics and will incorporate graphics to maintain the teacher's attention and interest. Technology content will be used as a bridge to demonstrate the relationship between science and mathematics and the varied applications of this subject matter. Science Weekly, Inc. will involve the most capable science and mathematics educators, teachers, administrators and educational technologists by utilizing their expertise on an advisory/ editorial board and curriculum focus groups. The board will provide the primary leadership and direction. The teacher-focused groups will provide feedback and information on format, content, tone and message of the publication. The project will involve urban, suburban and rural school systems to test prototypes during the development of the premier issue to ensure that the content, format and tone are appropriate for teachers in all settings and is scientifically and educationally sound.